Research Initiation Award: "New Approaches to the Fabrication of Blue Semiconductor Laser Diodes by Vapor Phase Epitaxy"

WPCf 2 B J d | x MACNormal $ 5 X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P T I. A. 1. a.(1)(a) i) a) T 0 * * . , US X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P 0 * * . , US , 3 ' 1 MACNormal Ayers 9309079 Zinc selenide is a wide bandgap semiconductor which is of interest for use in blue light emitting diodes and lasers, which are important for applications in compact disk readonly memones (CD ROM's), high definition video displays, and secured underwater commumcations. In recent months, pulsed operation of zinc selenide based semiconductor blue lasers has been demonstrated at temperatures up to 250 K. Higher performance, namely continuous laser operation at room temperature, is desirable but has not been achieved due to the difficulties in obtaining stable, low resistivity p type ZnSe and low resistance ohmic contacts to n and p type ZnSe. Due to these difficulties, the blue lasers which have been fabricated by molecular beam epitaxy (MBE) to date have large forward voltage drops (15 30V) and also excessive power dissipation. We plan to develop ZnSe blue lasers using organometallic vapor phase epitaxy (OMVPE), with an emphasis on the development of low resistivity p type ZnSe and lowresistance ohmic contacts. P doped ZnSe will be produced by nitrogen doping from the novel alkyl sources, trimethylamine, triethylamine, and triisopropanolamine. Low resistance ohmic contacts will be fabricated using a unique approach based on gradedbandgap alloys of HgZnSe. ZnSe based laser structures will be fabricated using ZnSe/Znl_ xCdxSe/ZnSe single quantum wells and the techniques described above. ***